Research Experiences for Undergraduates in Chemistry at Clark Atlanta University

This Research Experiences for Undergraduates (REU) Site project is in the area of chemistry. Beginning in 1992, eight undergraduate students will spend ten weeks in the summer engaged in research under the direction of various members of the faculty in Chemistry. This program will allow students to participate in active research programs applying chemistry to materials science. The goal of the proposed program is to seek and attract bright undergraduate students, particularly minority students. It will actively involve these students in research programs that will develop and encourage them to pursue science careers, particularly chemistry, ultimately leading to a Masters or Ph.D. degree.